Hahnemann University/Affiliated Hospitals Network

The goal of this project is to electronically link Hahnemann University's clinical campuses and major affiliated hospitals to INTERNET by creating a multi-institutional computer network between Hahnemann and four of these hospitals. They are Crozer-Chester Medical Center near Philadelphia, Guthrie Medical Center and Easton Hospital in rural Pennsylvania and Monmouth Medical Cetner in a New Jersey shore community. A fifth hospital, Lehigh Valley Hospital in Allentown, Pennsylvania will be provided the same access and serves as the other hospitals through an already planned INTERNET link. In addition to access to the resources of INTERNET, benefits will include increased communication among Hahnemann and its affiliates, and ready access to the information resources of the Hahnemann University Library from the affiliates. Hahnemann staff will train information professionals at the affiliates who have agreed to train and support their users. Administrators at the affiliates have committed to paying the long-term maintenance costs.